SBIR Phase II: Silicon CS-FET sensors for safety monitoring of electric vehicle lithium-ion battery packs

The broader impact of this Small Business Innovation Research (SBIR) Phase II project is to enhance lithium-ion battery safety in electric vehicles (EV). Battery safety is critical for EVs, and existing monitoring of temperature, voltage, and current is insufficient. This project advances a new sensor to improve safety.

This Small Business Innovation Research (SBIR) Phase II project will introduce Si CS-FET-based gas sensors as an advanced safety monitoring modality for EV battery packs. Lithium-ion cells vent certain gases, indicating potential problems such as overcharging and overheating. This project will develop and optimize materials and processes for high-volume manufacturing of Si CS-FET-based gas sensors. Key outcomes will be Si CS-FETs with high sensitivity and selectivity, low-power operation, and demonstrated reliability through accelerated lifetime studies. Successful project completion will also significantly advance the field of battery monitoring sensors and the broad field of battery diagnostics.